NANOSCALE: Engineered Alpha Helices for Pore Transport Regulation

Abstract

Proposal number: BES-9986538
Proposal type: Response to NSF 99-109, Exploratory Research on
Biosystems at the Nanoscale
Principal investigator: Peter K. Kilpatrick
Affiliation: North Carolina State University

NANOSCALE: Engineered Alpha Helices for Pore-Transport Regulation

This exploratory project investigates the fabrication and efficacy of nanostructured block-copolymer membranes containing helical polymers. The objective is to mimic biological systems in order to achieve high transport selectivity for biological solutes.

Various polymeric microstuctures that form helices with varying degrees of hydrophobicity will be synthesized and assembled in planar phospholipid monolayers and in vesicular membranes. The ability of the various structures will be probed to determine their ability to control solute transport through the membranes according the hydrophobicity of the helix periphery and the resulting pore sizes. Transport measurements are being done with radioactive and fluorescent solutes.